Learning sparse representations for restoration and classification: Theory, Computations, and Applications in Image, Video, and Multimodal Analysis

Efficient signal representation is critical in virtually all
disciplines of science. Sparse representations have recently drawn much
attention from the signal processing community. The basic model
consists of considering that natural signals admit a sparse
decomposition as a combination of very few atoms in some redundant
dictionary. Recent results have shown that learning overcomplete
non-parametric dictionaries for image representation, instead of using
classical off-the-shelf ones, significantly improves numerous image and
video processing tasks. This research aims at developing a
comprehensive theoretical, computational, and practical framework for
learning sparse representations for numerous signal analysis tasks.

First, the research concentrates on learning sparse representations for
global and local robust image classification tasks, proposing
formulations with both sparse reconstruction and class discrimination
components, jointly optimized during dictionary learning. Multiscale
dictionary learning and investigating a number of critical optimization
challenges are integral components of this project as well. The
framework of learning multiscale sparse representations is then
extended to multimodal data. As in the work with images and video, the
energies proposed for multimodality consider both reconstructive and
discriminative terms, learning the optimal representations both for the
given data and the given tasks. In addition to image, video, and audio,
other signal modalities studied include tensors, which are critical in
diffusion MRI, and bring the additional challenge of developing sparse
representations for non-flat data. The proposed work is also extended
to learning to sense, where combined with the learning of the optimal
dictionaries, the learning of the best linear sensing procedures is
studied.